Foundation Skills for Advanced Technology

The vision of Texas CREATE is to dramatically change the perception of advanced technology careers in Texas by establishing a Center of Excellence at Austin Community College. From this Center, CREATE will coordinate a strategy to affect its vision. CREATE will achieve four goals: core curriculum development in three areas, implementation of the core curriculum in both secondary schools and community colleges, establishing the sophisticated infrastructure which supports curriculum development and implementation, and finally evaluating its activities both formatively and summatively. At the heart of CREATE's curriculum development is a new foundation course, Introduction to Advanced Technology, built around a carefully selected set of instruments as a medium for hands-on experiential learning. This course simultaneously exposes students to a wide range of technological activities and skills and develops their abilities in math and science in an integrated, holistic fashion. CREATE believes all technicians should be trained in the fundamentals of environmental science and provides a mechanism for doing so in its course, Fundamentals of Environmental Science Technology. CREATE's third course, Fundamentals of Electronics Technology, is a radically new and exciting way of teaching students introductory electronics by using Mobile Robot technology developed at Texas A&M University. The implementation of CREATE's curricula at the high school level is achieved by a three-year program of summer camps which reach 135 secondary schools and bring both teachers and students together as learning partners. CREATE also plans an intensive year of exposure to advanced technology for community college administrators, faculty and students. CREATE will support its curriculum by validating skills, by student recruitment with emphasis on women and minorities, and by establishing sophisticated electronics links and a central clearinghouse for articulation agree ments among institutions of all kinds. CREATE will work cooperatively with organizations like the American Chemical Society and the American Society of Mechanical Engineers to enhance the professional status of technicians. Noteworthy among CREATE's dissemination activities will be use of a World-Wide Web Home Page, state-wide teleconferencing, materials production on CD-ROM, and development of packaged educational materials commercially distributed. CREATE's evaluation efforts will be both formative and summative and will benefit from advice from outstanding external evaluators like those at Texas A&M University's Public Policy Research Institute.